Testing the J1 Cusp and Supposed Association with Normal Polarity Massive Flood Basalts in the Hartford Basin

0000922
Kent
The record of paleopole positions assembled from paleomagnetic data indicate an abrupt change in directions of plate motion near the Triassic/Jurassic boundary. This is a renewal of a project to more accurately document the early Jurassic pole position in the Hartford Basin and attempt to locate the J1 cusp. Results have significance to understanding plate geometry, plate interactions and Jurassic flood basalt eruptions coeval with the J1 cusp.